Theoretical Astrophysics Research

Goldreich 9414232 Theoretical research will be done on a variety of topics including interstellar turbulence, multimode pulsations of white dwarf stars, rotation and magnetic fields of degenerate dwarf stars, and dynamics of narrow planetary rings. Each project aims to elucidate the underlying physical mechanism responsible for a well-observed but unexplained phenomenon. ***